Postdoctoral Research Fellowships in Chemistry

Dr. Craig A. Coburn has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Coburn's doctoral degree was from Brown University with Professor Kathlyn Parker. Dr. Coburn intends to continue his research with Professor Samuel Danishefsky at the Sloan-Kettering Institute. In his postdoctoral work, Dr. Coburn will learn the techniques of the synthesis of complex biologically active molecules. This will complement his graduate work developing methods towards the synthesis of Gilvocarcin and help to prepare him for his career goal of synthesizing difficult natural products such as taxol and its analogs. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.